The Analysis and Simulation of Wave-Particle Interactions in the Auroral Acceleration Region

A study of acceleration processes of the auroral particles is proposed. The approach is theoretical, numerical using the data base from the VIKING satellite and sounding rockets. The auroral acceleration mechanisms are complex and no clear candidate has emerged from the past studies. This study will use new nonlinear parametric mechanisms in which Alfven wave decays into a sound wave and backscattered Alfven wave. A hybrid simulation code will be used. The simulation results should provide information on the weak double layers which evolved from parametric processes. Plasma wave data will be analyzed from the VIKING satellite and rocket data and will be interpreted in conjunction with the simulation results. This combined approach of data analysis, theory and simulation will provide information concerning the auroral acceleration mechanisms.